Semantic Based Models and Translation of Engineering Designs

Research will develop a formal approach to computer modeling of the semantics of engineering products. The uses of such a model include: checking for integrity, sharing of data across engineering applications and organizations, providing a standard for archiving and support for further automation. The expected results will be a theory of semantic modeling of engineering products and one or more kernel data models that will demonstrate the concepts and capabilities. The approach focuses on the underlying logic of product model information. The methodological approach is predicate calculus. The semantic model will be largely declarative. Use of the model will depend upon associated procedural system architectures. Work on useful system architectures are undertaken, with one or more examples developed in prototypes.